The New England Regional Climate Change Impacts Assessment

Rock, 9903604

This project proposes to derive an assessment of the potential climate change impacts on the New England area. The study comprises one regional component of the ongoing U.S. National Assessment on the potential consequences of climate variability and change. The proposal focuses on human health, forestry and water. It proposes to develop the infrastructure needed to enhance community interaction and outreach with impacted stakeholders. It further proposes to assess the potential impacts through analysis of recent conditions and scenario predictions interpreted for the area. The results should identify areas for decision and additional research. A number of databases will be developed to provide information for future decisions affecting the New England area.